Mathematical Sciences: Some Problems in Kazhdan-Lusztig Theory and Related Topics

This project is concerned with the Kazhdan-Lusztig theory which deals with Kac-Moody algebras and groups, their representations, and combinatorics of Bruhat ordering on Coxeter groups. The principal investigator will work on problems involving combinatorics of Bruhat ordering, geometry of Schubert varieties, and highest weight representations of Kac-Moody algebras. This research is in the general area of Lie algebra. The principal investigator is concerned with the Kazhdan-Lusztig polynomials which are combinatorially defined objects having deep connections with structures in geometry and representation theory. This work is important in both mathematics and physics.